Oceanographic Instrumentation Enhancements Supporting Scientific Operations aboard the Research Vessel Sikuliaq

This project enhances shared-use oceanographic instrumentation supporting scientific operations aboard the R/V Sikuliaq, a research vessel operating as part of the U.S. Academic Research Fleet. The instrumentation upgrades improve reliability and help maintain high-quality observations needed to study ocean circulation, marine ecosystems, seafloor processes, sea ice dynamics, and other ocean systems in high-latitude environments. The project strengthens shared research infrastructure aboard fleet vessels while supporting modern ocean science, workforce development, and research and education activities relevant to ocean observation, environmental prediction, Arctic research, and coastal resilience.

The project includes acquisition of sound velocity sensing equipment, acoustic support system components, fluorometric sensing instrumentation, software modernization, restoration of acoustic observational capabilities, engineering evaluation of bubble sweep effects impacting scientific acoustic systems, and a limited unmanned aerial system capability supporting scientific and operational activities in ice-covered environments. These investments address equipment obsolescence, reduce operational risks associated with aging systems, and improve the reliability and availability of critical observational capabilities. The project helps maintain the technical infrastructure necessary to support a broad range of oceanographic research activities conducted aboard Academic Research Fleet vessels and ensures continued access to high-quality acoustic, environmental, and seafloor observation data for the research community.